Felix Klein and the Gottingen Mathematical Tradition

Felix Klein is universally regarded as one of the most important mathematicians of modern times, and the lack of a major biographical study devoted to his career is certainly one of the more glaring gaps in the literature in the history of mathematics. Familiar to all serious students of mathematics, Klein has also figured prominently in reform movements in technology, science, and mathematics education. He is also widely known for his classic "Vorlesungen uber die Entwicklung der Mathematik im 19. Jahrhundert," which remains unique as an overview of the personalities, institutions and ideas that shaped the world of mathematics in the modern era. All of these achievements were overshadowed by Klein's success and influence as a scientific organizer and the leading architect of the modern Gottingen mathematical tradition. By attracting colleagues like David Hilbert, Hermann Minkowski, Carl Runge, Ludwig Prantl, Edmund Landau, Hermann Weyl, Richard Courant, et al., Klein not only dethroned the once omnipotent Berlin establishment, he ensured Gottingen's dominance as the leading center for mathematics in Germany and the world up until the time of the Nazi takeover eight years after his death. Dr. Rowe is continuing his project whose ultimate aim is to produce a large-scale scientific biography of Felix Klein (1849- 1925). Under this grant, he will analyze Klein's early geometrical works and those of his collaborator, Sophus Lie. Dr. Rowe will also prepare an annotated edition of Klein's unpublished lectures on elliptic function theory. Finally, he will collaborate with Renate Tobies and Walter Purkert on a shorter biography of Klein to be included in the Birkhauser series "Vita Mathematica."